Cryo-Cytochemistry on Olfactory Epithelial Surfaces

The sensory tissues of the nose contain cells that have microsopic hairlike processes called cilia. The membranes of these sensory cilia are unlike those of cilia from areas that are not sensory, in showing higher densities of ultramicroscopic particles. It is believed that these particles seen in the electron microscope represent large molecular species such as proteins involved in binding important odorant molecules, or involved in control of excitation of the cell membrane in response to odorant binding. This work will utilize unusual high-resolution electron microscopical techniques to explore the nature of these particles. Specific molecular probes will be used that are known to bind to certain kinds of proteins. The localization of the bound probe molecules will be used to infer the identity of the membrane components, and study their distribution. These morphological properties will be compared data from biochemical and physiological studies, to clarify how chemosensory signals are produced in response to the presence of odors. This issue of transduction, where an stimulus is converted into a nerve signal to the brain, is fundamental to the operation of sensory systems. The very demanding techniques in the hands of these particularly skilled investigators promise advances in understanding such transduction processes.